Advanced Research Workshop on Integration, Information and Collaboration Models; Pisa, Italy, June 6-11, 1993

This project provides partial funding for a NATO Advanced Research Workshop (ARW). The workshop will be attended by participants from the U.S. (Including Post-Docs), and from Canada and the European NATO countries. The workshop brings together researchers from industry and academe who work in the areas of integration, including coordination technology, integrated cognitive systems, digital multimedia, concurrent engineering, and computer integrated manufacturing